Engineering Research Equipment Grant: Laboratory Digester

This grant will enable the purchase of a laboratory digestor, which will be used to determine the technical and economic feasibility of processes designed to combine the advantages of organosoly delignification with acid hydrolysis for the purpose of producing energy and chemical feedstocks from woody biomass or agricultural residues. It is also intended to be used in the proposed research work to determine the effect of recirculation of varying amounts of spent liquor (with dissolved lignin and cellulosic material) on the soda-AQ and kraft delignification of woody biomass. The effect of these methods on pulp properties (such as bleachability, beatability, and strength development characteristics) of the result pulps will also be determined.